Through-Space Interactions in Organic Molecules (Chemistry)

This grant in the Organic and Macromolecular Chemistry Program supports research by Prof. David Reingold, which is aimed at elucidating features of electronic interactions between atoms in a molecule which are not bonded to each other. Organic chemists believe they have a sound understanding of electron sharing between bonded carbon atoms. However, recent advances in the synthesis of strained-ring organic molecules demonstrate gaps in our understanding of the concepts of bonding and electron-sharing. This work is aimed at synthesizing and exploring the chemistry of molecules which have significant electron density between non-bonded atoms. Two different projects are planned. In the first, Dr. Reingold plans to prepare a family of compounds which should provide a test of the Goldstein-Hoffmann theory of through-space (longicyclic) conjugation. In the second, Dr. Reingold will synthesize what could be the first bishomobenzene derivative, a cyclopropasemibullvalene. On rearrangement, this should provide the first planar, electronically unperturbed ı8!annulene.